Elongation & Termination by Yeast RNA Polymerase II

Transcriptional regulation is one of the major control points for gene expression in both prokaryotes and eukaryotes, and controls during elongation and termination operate by a variety of strategies. For several years, the elongation and termination properties of mammalian RNA polymerase II have been studies in this laboratory. This research includes studies on these reactions with yeast RNA polymerase II using in vivo and in vitro techniques. The advantage to studying these processes in yeast (Saccharomyces cerevisiae) is the availability of powerful genetic tools to complement biochemical analyses. There are five specific objectives: 1) Identify the signals which cause yeast RNA polymerase II to terminate; 2) Define the physical structure of specific elongation complexes; 3) Evaluate the contribution of the conserved C-terminal domain of the largest subunit of the polymerase to the elongation reaction; 4) Examine the mechanism by which yeast transcript elongation factor SII promotes terminator read through by RNA polymerase II; and 5) Identify other cellular proteins involved in regulating transcript elongation in the cell. The results from these experiments should provide fundamental information about the regulation of transcript elongation in eukaryotes. The similarities in components of the transcriptional machinery between yeast and larger eukaryotes suggest that much of the information obtained here will be directly related to mechanisms in other eukaryotes. Any differences which we observe obviously will also be important. The advantage to this approach is that genetic tools are available to complement the biochemical and cell biology approaches available in mammalian cells. %%% Transcriptional regulation is a major control point for gene expression. This control can occur during initiation elongation or termination. Controls during elongation and termination by mammalian RNA polymerase II have been studied in this laboratory for several years. While studies of the mechanisms controlling transcript elongation and termination mammalian cells have provided much preliminary information, there are limits to the types of experiments that can be done in such systems. Thus, we propose to expand our previous work with mammalian cells by studies of transcription regulation in yeast. The advangatage to studying these processes in yeast (Saccharomyces cerevisiae) is the availability of powerful genetic tools to complement biochemical analyses. There are five specific objectives: (1) Identify the DNA sequences are which yeast RNA polymerase II stops elongating an RNA chain, These experiments will use both the intact cell in vivo as well components isolated from those cell in vitro. (2) Define the physical structure of specific elongation complexes containing the polymerase, the DNA template, and the RNA transcript. Enzymatic and chemical probes will be used to identify the molecular contacts between the protein and nucleic acid components in these complexes. (3) Evaluate the contribution of the C-terminal domain of the largest subunit of the polymerase to the elongation reaction. This subunit contains a unique structure consisting of multiple. Repeated heptapeptide sequences. Quantitative analysis of the elongation properties of polymerase molecules containing and lacking this domain will be carried our (4) Examine the mechanism by which a yeast transcript elongation factor (SI) stimulates elongation by RNA polymerase II. The clone for the yeast SII protein will be mutagenized, and activity of the mutant proteins will be compared. (5) Identify other cellular proteins involved in regulating transcript elongation in the cell. genetic analyses will be used to identify candidate proteins which will be further characterized in vivo. Complementing in vivo and in vitro results will provide strong evidence for the participation of particular proteins in elongation control.